Hurricane Andrew: Data Collection and Damage Assessment

This post-disaster investigation will conduct and coordinate the collection of data on many aspects regarding Hurricane Andrew using the expertise of national and local researchers, officials and organizations. The research team will also conduct some preliminary assessment of losses. The data items consist of: constructed facilities damage/failure; meteorological; topographical/natural barriers; financial loss; crisis management; and some case studies already in place. The findings resulting from this work will benefit other researchers, national and local officials, and public and private organizations to better manage and mitigate future hurricanes.